US-Turkey Workshop: The First ICFA School/Workshop at the New Center for Instrumentation in Istanbul, June 2002

0218049
Sheaff

Description: This award provides partial support for the first ICFA School/Workshop at the new Center for Instrumentation at Istanbul Technical University (ITU) in Istanbul, Turkey, June 17-28, 2002. ICFA, which is the International Committee on Future Accelerators, has been holding a regular series of instrumentation schools/workshops every two years in different locations. The US organizers for this school/workshop are Dr. Marleigh Sheaff, Senior Scientist Emerita, University of Wisconsin, Madison and member of the International Committee on Future Accelerators (ICFA), and Dr. Muzaffer Atac of Fermilab and UCLA and the Scientific and Technical Advisor for the Center. The Turkish co-organizer is Professor Mahmut Hortacsu of Istanbul Technical University, who is also the Director of the new Center. The Center for Instrumentation will be a permanent facility where lecture courses and lab exercises will be offered on a regular basis to students from Turkey and other countries in the Africa, Near East, and South Asia region. This first workshop at the Center focuses on instrumentation in elementary particle physics. The goals of the workshop are to encourage the development of instrumentation by the students at their home institutions and to promote collaboration among physicists at early stages in their careers.

Scope: Turkey is a suitable host for this workshop because of its location between Europe and Asia and its proximity to Africa, from which it is especially desirable to attract students. The Center for Instrumentation will provide training and online help with questions on instrumentation for the students after they return to their home institutions. Support for the new center will be provided by Istanbul Technical University and by the Turkish Science and Technology Council (TUBITAK). Several other Turkish universities are also expected to contribute. This award is supported by the Office of International Science and Engineering and the Division of Physics.